Multithreaded Execution of Object Oriented Programs

Development of software in OO languages has become very
widespread in every sphere of computing. On the hardware front,
multithreaded high-performance workstations and future VLIW
machines or SMP workstations have emerged as an affordable
alternative to distributed and parallel computing. These
machines, single- or multi-CPU, are often equipped with operating
system supported multithreading and are usually connected through
a communication network. This proposal intends to develop a
platform for partitioning and scheduling OO programs for
concurrent execution on a multithreaded system. The first step of
proposed work is to perform coarse-grained program partitioning
of the flow graph into tasks. We have successfully implemented
such an experimental framework for programs written in C using
the Unravel flow graph and Metis graph partitioning package. The
next step of our approach is to build a framework for runtime
concurrent execution of the partitioned flow graph based on our
>experience of the Threaded-Executor model. We plan to extend
this implementation to experiment with our recently introduced
Scalable Task Duplication Based Optimal Scheduling Algorithm. We
also propose to investigate opportunities for extracting
instruction level parallelism more aggressively for VLIW
architectures as a result of better static type information and
interprocedural analysis.